Purchase of 400 MHz WB NMR Spectrometer

Nuclear Magnetic Resonance (NMR) spectroscopy is the most powerful tool available to the chemist for the elucidation of the structure of molecules. It is used to identify unknown substances, characterize specific arrangements of atoms within molecules, and to study the dynamics of interactions between molecules in solution. Access to state-of-the-art NMR spectroscopy is essential to chemists who are carrying out frontier research. The Department of Chemistry of the University of Wisconsin will use this award from the Chemistry Shared Instrumentation program to help acquire a high-field NMR spectrometer. Among the areas of chemical research that will be enhanced by the acquisition are the following: 1) Small to large transition metal clusters 2) Boron cluster chemistry 3) Hydrazine derivatives 4) Biopolymer interactions 5) Organophosphorous chemistry 6) Organosilicon chemistry.